Center for UMass-Industry Research on Polymers - Joint Research Project with Liberal Arts College Faculty

The Industry/University Cooperative Research Center at the University of Massachusetts, Amherst is now a self-sufficient research group addressing basic polymer science. This project is a collaborative study between the Center for University of Massachusetts - Industry Research on Polymers and Mount Holyoke College. The project is studying the development and examination of synthetic vesicle systems which "sense" their environment via conformational changes of membranes-bound synthetic polymers.